Reorganization and computerization of the non-type systematic mollusk collection of the Paleontological Research Institution

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The collection of the Paleontological Research Institution (PRI) includes two to three million specimens and is among the ten largest and most scientifically important fossil collections in the United States. However, the backbone of the collection, its non-type systematic mollusk collection (estimated at about 1.5 million specimens), is not yet fully at a minimally acceptable condition for a resource of its importance and value. Between 25 and 30% of the systematic mollusk holdings remain in unfavorable storage conditions that are potentially hazardous for the specimens. This proposal seeks support for the reorganization, curation, and beginning computerization of PRI's non-type systematic mollusk collection, which will facilitate its long-term use by the scientific community. Results will be made available on PRI's website at www.pricollectionsdatabase.org. This reorganization is also highly likely to have significant impact in the short term on a currently active research area in paleontology and conservation paleobiology which applies geo-historical data to present-day problems related to human-induced environmental change.

PRI is a national leader in Earth science educational programming, and specimens from the mollusk collection will be used to inform and support various educational outreach programs. In particular, the activity described in this proposal will support the establishment of a teacher professional development program to support secondary school science teachers in using hands-on, inquiry-based teaching. The key concept will be that research collections are critical to testing hypotheses about biological evolution and the history of Earth systems.